Non-Equilibrium Theory of Long-Term Climatic Change

This grant enables Professor Saltzman to continue his studies of long-term (e.g, Pleistocene and Cenozoic) climatic changes aimed at developing a plausible physical mode to account for the mounting geological proxy evidence regarding the simultaneous time-evolution of many climatic variables (e.g., ice mass, CO2, and surface temperature) and their spatial distributions. The proposed studies involve statistical analyses of the relevant time-series records (including analyses for detection of "abrupt" phenomena and "dimensionality"), as well as theoretical studies based on both "deductive" physics (using general circulation models and statistical-dynamical models, where fast-response, equilibrium, considerations are involved) and "inductive" low-order models (using qualitative, i.e., "conceptual," physics structured by the theory of dynamical systems analysis where slow-response, non-equilibrium processes that are not amenable to direct calculation are involved). This research is important because it treats our planet's climate as a dynamical system influenced by both external forcing and internal feedbacks and interactions. This approach is aimed at producing a comprehensive theory of the climate system.